Acquisition of Instrumentation for Plant and Soil Nutrient Analysis in Ecological Studies

Studies of plant nutrient dynamics and ecosystem cycling require rapid, accurate analytical instrumentation for dependable, routine elemental analyses. Plant ecologists and their graduate and undergraduate students at Marshall University (a non-Ph.D. granting institution) have been conducting this type of research for at 1east the past six years. To date, however, the scope of many of these projects has been significantly constrained by the limitations of our current instrumentation-- ion-selective electrode (ISE) meters--or by the considerable cost of shipping samples to other laboratories for analyses. Funds are therefore requested in the amount of $60,511 toward the purchase of (1) a computer-controlled, continuous-flow, wet chemistry analytical system, (2) a multisample block digestor for preparing plant tissues and soil samples for analysis by wet digestion techniques, and (3) two area meters (one portable, the other a benchtop model) for measuring leaf areas as a comparative base for determining foliar nutrient contents and fluuxes. Automated wet chemistry analysis (auto-analysis) provides the level of accuracy and efficiency required in nutrient research in ecology. The high degree of accuracy is the result of several advantages over other analytical systems, including the ISE technology currently available at Marshall University. The mixing of reagents and samples in auto-analysis is continuous and uniform from sample to sample, reducing human error. The colorimeter receives a continuous flow of reagent-sample and reagent-blank mixtures, rather than one-at-a time analyses which can introduce further error. In addition, auto-analysis is far more time-efficient than ISE when numerous specimens are being analyzed, and requires very little sample in order to obtain an accurate reading. These latter factors permit many more samples to be analyzed, allowing better replication and making possible a number of projects that would be impractical with more time-intensive methods. The smaller sample requirements also make possible the analysis of tissue nutrient content in plant species that occur infrequently in the field. Wet digestion and auto-analysis thus comprise an accurate, efficient, reliable method for plant tissue and soil organic nutrient analysis. The ability to measure leaf areas using the requested area meters would further enhance the accuracy of plant nutrient flux measurements. Because overall leaf mass can decline by more than 20% during senescence, when important foliar nutrient movements are taking place, changes in simple nutrient concentrations provide a misleading picture of nutrient flux. On the other hand, structural components of leaves tend to maintain consistency in leaf area throughout senescence, providing a significantly more stable basis for ascertaining actual foliar nutrient contents and fluxes. The following two research projects could be initiated shortly after acquisition of the requested instrumentation. (1) The first study would assess the importance of nitrogen and phosphorus resorption to the growth of a spring ephemeral plant community in a nearby forest, with implications for the "vernal dam" hypothesis. (Resorption is the mobilization of foliar nutrients during senescence and their transfer into storage tissues for subsequent re-use.) If these plants resorb strongly, and if their early spring growth depends largely on stored nutrients rather than on concurrent uptake from the soil, then their role as a vernal nutrient dam may be quite limited, adding to recent evidence that the soil microbial community may be the primary agent in early spring retention of soil nutrients by forest ecosystems. The additional labware and chemicals required to complete this project can be funded by Marshall University lab fee moneys, with much of the work being carried out by students in Marshall's Principles of Ecology (primarily undergraduate students) and Plant Ecology (primarily graduate students) courses, under the guidance of the PI and Co-PI. (2) The second project would seek to determine the role of nutrient dynamics in sustaining the health of central Appalachian forests, and would be carried out at the Fernow Experimental Forest, Tucker County, WV. This study is motivated partly by recent increases in mortality among native trees of this region, and would examine specifically the relationships of soil nitrogen dynamics to the flux of soil base cations (primarily calcium and magnesium), and the response of these relationships to timber harvesting, nitrogen amendments, and base cation additions, administered alone or in combination. Funding to support this research is being sought through a grant application submitted by the CoPI to the NSF/DEB Ecological Studies (Ecosystems) program in December 1995. The requested instruments are of great relevance to enhancing plant ecological research at Marshall University. In addition, their acquisition would strengthen our ability to compete effectively for funding on other research projects of interest to us. These instruments would also expand the ability of Marshall University to provide graduate and undergraduate students with practical experience in applying state-of-the-art research technologies to answering significant ecological questions.